Acquisition of Fiber-Optic Instrumentation for Innovative Spectroscopic Light Source to Advance Sensing Capabilities in Research and Education

An innovative light source is assembled. The source consists of an ultrafast laser, a highly nonlinear fiber, and a highly dispersive fiber connected in series. It is robust, portable and "wavelength-agile", scanning through a 1200 nanometer range of wavelengths in 3 microseconds. It will be applied to studies in high-pressure combustion, measurements of fluid fuels, and development of new sensors. It will also be incorporated into existing advanced laboratory courses.